Project Grow: The Development of Hands-on, Inquiry-Based Middle School Mathematics and Science Teachers

Abstract ESI 9353407 This 3 year project is designed to build upon and to extend the reform of school science and mathematics begun with Ohio's Statewide Systemic Initiative, Project Discovery. The project will : * Increase the number of inquiry based middle school science and mathematics teachers in the Western Region from 180 to 600 in the period 1994 to 1996. * Provide institute training to 54 mathematics and science coordinators or administrators. * Recruit and train 9 West Region college and/or university faculty to be content experts in the summer institutes * Recruit 18 additional middle school teachers to serve as institute faculty. Academic leadership teams to staff the summer institutes for teacher enhancement consist of one scientist, one mathematician and two master teachers. Three teams will be trained for each region one in mathematics and one each in physical and life sciences. These teams will then offer intensive summer institutes to groups of teachers and administrators from every school in the West Region. Each teacher will receive 144 contact hours in one content area in a summer institute with 48 contact hours in the academic year follow up. In addition the training of a large group of regional science and mathematics coordinators and administrators in the same inquiry model, will provide a mechanism for horizontal and vertical translation of the model in every school district. The Western Region of Ohio serves a large urban, racially and ethnically mixed population as well as a more homogeneous group scattered over a large rural area. Cost share is 120%.